Performance Evaluation of Fast Packet Switches Supporting Integrated Services

Two objectives characterize the design of new telecommunications networks. One is to support high bandwidth applications (such as digitized video and image communication) made possible by the high capacity of fiber optics transmission systems; the second is to provide a single communications system which supports all services in an integrated and unified fashion. In response to these objectives, packet switching is emerging as the appropriate switching technique. Several proposed architectural designs for fast packet switches have emerged in recent years. There is a need to evaluate and compare these proposals under various traffic scenarios with respect to the performance of the switch as seen by network users. The performance measures, which are typically expressed in terms of packet loss and packet delay, must be tailored to be consistent with the specific requirement of the applications supported. This research will create a unified framework consisting of a precise definition of the performance measures of interest and a characterization of the basic traffic patterns corresponding to the various applications and their mixes to be supported by a fast packet switch. Using this framework the research will examine the performance of switches in two steps by 1) focusing on single module switches of the above mentioned types and 2) addressing the case of large switches composed of several switching modules organized in multistage configurations. Both mathematical analysis and computer simulation will be used in this study.